Industry Internship: Assessment by Simulation of Simple Sequencing Rules in a Surface Mount Assembly Line

This Industry Internship project will be carried out in collaboration with Digital Equipment Corporation (DEC), a major manufacturer of electronic components. The objective of the project is to develop a set of decision support tools for the effective scheduling and operation of a surface-mount production time. The analysis of generic scheduling algorithms and their operation within this environment will also be assessed.